The Mechanics of Fluidized Suspensions

Constitutive reltionships of particulate assemblies and fundamental mechanisms of fluidization will be investigated. The distinction between the particulate and aggregative behavior will be studied by direct numerical simulation. The results will be used to explain the differences between the gas and liquid fluidized beds, and the effect of the yield stress. It is expected that the research results will be relevant to both theoreticians and practitioners. The proposed work addressed essential bed systems.